CSR:FET: Artificial Non-Neural Networks: Energy-Efficient Bacteria-Inspired AI for Edge Computing

Artificial intelligence is revolutionizing fields ranging from autonomous vehicles and robotics to personalized medicine by enabling machines to sense, learn, and make decisions in complex real-world environments. However, many of today's artificial intelligence systems require powerful computers and large amounts of energy, limiting their use in small devices such as sensors, wearables, and remote monitoring systems. To address this challenge, this project explores a new approach to intelligent computing inspired by bacteria. Although bacteria do not have brains or nervous systems, they can sense their surroundings, process information, adapt to changing conditions, and make survival-related decisions using remarkably energy efficient biological mechanisms. By understanding and harnessing these natural information-processing strategies, this research aims to develop a new generation of lightweight, energy-efficient artificial intelligence systems that can operate effectively on low-power devices.

The intellectual merit of this project lies in understanding how bacterial gene regulatory networks process information and translating these principles into a new computational framework for artificial intelligence called Artificial Non-Neuronal Networks. The framework is developed through three interconnected research thrusts. The first thrust uncovers the fundamental mechanisms that enable bacterial gene regulatory networks to exhibit persistent regulatory memory, asynchronous information processing, and context awareness. The second thrust develops mathematical models and learning algorithms that incorporate these principles into Artificial Non-Neural Networks, establishing a new architecture for edge artificial intelligence. The third thrust develops software tools that enable deployment on Field Programmable Gate Arrays. The framework will be benchmarked against conventional artificial intelligence approaches across performance, scalability, memory usage, and efficiency. Together, these advances will determine whether bacterial gene regulation can provide a foundation for efficient artificial intelligence.

The broader impacts of this project stem from broadening the range of biological systems that inspire artificial intelligence, particularly for edge computing applications. This expanded view of intelligence may enable new forms of low power artificial intelligence that can operate in environments and applications where conventional approaches are impractical. Such capabilities could bring intelligent decision making to small devices operating in energy constrained settings, including autonomous robotics, environmental monitoring, agricultural and health sensing technologies. To accelerate innovation in this emerging area, open-source software tools developed through the project will be released to the research community. Educational activities include a four-week high school program and a summer school for undergraduate and graduate students, helping to cultivate future scientists and engineers while strengthening the workforce needed to advance next generation intelligent systems.